Conformal Dynamics

In this project, I shall consider problems in harmonic analysis
arising in geometric analysis and geometric measure theory, and in
the theory of elliptic and parabolic partial differential equations
and operators. These questions are interesting because of their
applicability to real world phenomena (see below), but also because
of the deep connections among them. The main directions of the
proposed research include the following:
1. To develop and apply ``T1/Tb" (i.e., Carleson measure)
criteria for the solvability of boundary problems for
divergence form elliptic equations and systems.
2. To treat various problems in the theory of uniformly
rectifiable sets, in the applications of this theory to
elliptic and parabolic PDE, and in the theory of
quasiconformal mappings.
3. To obtain sharp average decay estimates for Fourier transforms, and
to apply these to concrete problems including lattice point problems and
the Falconer distance problem.

As mentioned above, I propose to work on problems in the area
of harmonic analysis and its application to, and interaction with,
geometric measure theory and the theory of elliptic and parabolic
partial differential equations. Roughly speaking, in
harmonic analysis one investigates properties of
functions and ``operators" (i.e., mappings which transform one function
into another) by decomposing them into smaller, constituent pieces,
which are easier to understand, and then reassembling the pieces. The
name itself arose by analogy to the decomposition of a musical sound
into its various frequency components, or ``harmonics".
geometric measure theory involves the study of the relationship between
geometric properties of sets, and their ``measures" (the latter are
generalizations of the notions of length, area, and volume). Partial
differential equations of elliptic and of parabolic type describe a
wide variety of phenoma in the real world, including electrostatics,
certain fluid flows and elastic deformations, and various diffusion
processes such as the conduction of heat, the flow of ground water, certain
phenomena arising in the mathematical theory of population biology, and the
pricing of options in financial markets. In the last decade the interplay
between these different subfields of mathematics has turned out to be a
fertile ground for investigation, with much exciting work remaining
to be done.